Oceanographic Instrumentation, R/V Blue Heron

9988098
Ricketts
This award to University of Minnesota at Duluth will provide instrumentation for lake research for use on R/V Blue Heron, a research vessel operated by the University's Large Lakes Observatory as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a portable winch and two computers. The shared-use instrumentation supported here will assist marine scientists conduct studies in the Great Lakes during 2000 and future years.
***